A High Performance Connection for Washington State University

This award is made under the high performance connections portion of ANIR's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for two years for a DS-3 connection to the vBNS. Applications include projects in astronomy, biochemistry, physics, materials science, ocean field research and computer science. Collaborating institutions include the Apache Point Observatory, Pittsburgh Supercomper Center, Maui High-Performance Computing Center, Los Alamos National Laboratory, Harvard University, University of Washington, University of Miami, Batelle Pacific Northwest National Laboratory, Sandia Livermore National Laboratory, University of California at San Diego and Berkeley, Scripps Institute of Oceanography, Naval Postgraduate School and University of Minnesota.